Mathematical Sciences: Operator Theory on Bergman Spaces

The theme of Professor Zhu's mathematical research is to relate function theory on certain higher-dimensional complex domains to the growth of certain operators on spaces of functions analytic in these domains. The domains in question may be thought of as solid objects whose points are located by several complex, rather than real, numbers. Functions on the domain assign complex numbers to these points, possibly in a rather noisy manner or, at the other extreme, with the regularity and predictability of the analytic functions, which are given by power series in the coordinates. The circumstance that intrigues mathematicians is that essentially every function, no matter how noisy and badly behaved, has an extremely well-behaved analytic part. This correspondence, which really has to do with operators on spaces of functions, turns out to have important applications in more or less concrete settings, for instance in the design of feedback-stabilized control systems. The specific goals of the project relate to the operators obtained by compressing or skew-compressing multiplication by a function, called the symbol, to a distinguished space of analytic functions, generally a Bergman space. Membership of the operator in various distinguished classes (bounded, compact, Schatten classes) is to be characterized in terms of properties of the symbol.